Workshop on Integrating Digital Library Content with Computational Tools and Services

This proposal requests funding to support an exploratory workshop On Integrating Digital Library Content with Computational Tools and Services to bring together a cross-disciplinary group of researchers and stakeholders to examine the promise of combining cutting-edge high performance computing analytic tools and services with digital library content. It will bring together a cross-disciplinary group from several distinct communities including
o content scholars who wish to more fully exploit the content of digital libraries and similar repositories of digital materials
o content providers who wish to provide extended mechanisms for users in order to manipulate and analyze digital materials
o software developers and administrators
o researchers engaged in new tool development
The workshop has been accepted as an official full-day workshop of the 2009 ACM/IEEE Joint Conference on Digital Libraries (JCDL 2009)